Operational Support for the International Collection of VA Mycorrhizal Fungi

Vesicular-arbuscular (VA) mycorrhizal fungi are ubiquitous in nature and have been shown experimentally to reduce plant stress, to enable interplant transfer of nutrients, and to increase soil stability, plant phytohormone levels, and plant absorption of elements in soil. Because of these attributes, there has been considerable world-wide interest in these fungi among the scientific community and an increased demand for reliable cultures of VA mycorrhizal fungi has resulted. Since they are obligate symbiotic fungi which cannot be maintained on culture media, cultures can not be obtained from existing microbial collections. In October of 1985, NSF awarded a grant to the Institute of Food and Agriculture Sciences to establish a culture collection of these fungi. This collection presently consists of 548 isolates of 56 species among the six genera of VA mycorrhizal fungi. In the first two years of its operation, over 300 cultures were sent to 92 researchers. This project provides partial operational funding for the collection for the next 15 months.